Acquisition of Equipment for a Comprehensive Marine and Environmental Sciences Research Training Laboratory at Coastal Carolina University

0079658
Guentzel
This Major Research Instrumentation award to Coastal Carolina University provides instrumentation for marine and environmental sciences research and training. In particular, support will provide graphite furnace and flame atomic absorption spectrophotometer and carbon-nitrogen-sulfur analysis instruments and computers for developing a laboratory intranet,as well as additional instrumentation to expand the laboratory capabilities in environmental chemistry. The project is supported by the Division of Ocean Sciences at NSF. Coastal Carolina University will provide cost-share support for nearlhy 40% of total project costs.
***